CAREER: Microdesigning Model Material Systems to Probe Dissipative Interface Motion in Heterogeneous Ceramic Microstructures

9702610 Bullard The objective of the Faculty Early Career Development project is to investigate the energetics and kinetics of the evolution of thin film clusters and multiphase polycrystals. This objective will be accomplished by using the new technology of microcontact printing to study the dissipative interface motion of ceramic "microfeatures" on solid substrates. The unique capabilities of the proposed methods can avoid the chemical and geometrical complexities of typical systems. Specifically, the project will address the following issues: 1) development of a new and straightforward procedure for estimating the interphase boundary energy density between two solids, 2) the influence of film/substrate coherency, and thus the interphase boundary energy density, on the equilibrium shapes of oxide thin film islands, 3) identification of those aspects of interfacial energy densities (relative magnitudes, anisotropy) that can significantly influence the kinetics of coalescence and coarsening of oxide film clusters, and 4) the role of geometrical factors, like proximity correlations between growing and shrinking domains, that can cause coarsening dynamics to depart significantly from existing theories of Ostwald ripening. In addition, the principal investigator will restructure and modernize the undergraduate ceramics processing laboratory course. This includes acquiring modern equipment and designing new lab exercises on powder synthesis from alkoxides, reaction sintering, etc. Additionally, new computer simulation methods, developed through the PI's research, will be integrated to reinforce theoretical concepts and their practical applications. A lab manual, including brief descriptions of the scientific principles underlying each experiment, will be produced and made available on the World Wide Web, along with instructional video modules of each experiment. %%% Characterization of the equilibrium shapes and coarsening of thin film islands, using adv anced high-resolution spatial and chemical analysis, will be used to study the energetics and kinetics of the evolution of thin film clusters and multiphase polycrystals. The approaches will yield fundamental new information about the dynamics of interface motion. Educational innovations at the University of Illinois will focus on restructuring and modernizing the undergraduate ceramics processing laboratory course. ***